Engineering Research Equipment Grant: Flow Meter Gas Chromatograph Data Acquisition System

This proposal was reviewed by a three-person Equipment Grant panel on February 25, 1988. This proposal was ranked 5 out of the 13 proposals submitted to the Thermal Systems and Engineering program (Heat Transfer Component) and was placed in the Recommended for Funding if Resources are Available category. This proposal (total points: 239) was very close to the proposal ranked fourth (245 points) and significantly above the proposal ranked sixth (214 points). I recommend that this proposal be awarded.